An On-Line Directory of Aquatic & Marine Scientists

An electronic, on-line Directory of Marine Scientists could be a valuable asset to the Oceanographic scientific community and to the government agencies working with this community. This effort is to conduct a one-year pilot-scale project to test the feasibility of developing such a Directory. The Division of Ocean Sciences' mailing list will be used to determine such factors as set-up and maintenance costs, issues of privacy, and the extent of cooperation and commitment from other agencies and professional societies. The results of this project will be an updated and verified data base from which OCE will be able to generate a mailing list and labels and the information needed to make a reasonable judgement as to the feasibility of a full-scale on-line directory.//